Development of Contemporary Modern Physics Experiments in the Environment of an Undergraduate Nucleon Physics Lab

This award is made as part of the Instrumentation and Laboratory Improvement program. This program funds innovative new projects for undergraduate physics laboratories. The Principal Investigator of this project is Dr. Brient of Ohio University.